SBIR Phase I: Enhanced Phase Sensitive Spectroscopy Using Matched Gratings

9861504
This Small Business Innovation Research Phase I project will begin development
of a phase sensitive spectroscopic technique that may be up to three orders of magnitude
more sensitive than FM spectroscopy. The proposed technique utilizes index of refraction
variations associated with a molecular resonance to generate a phase shift between two
optical beams. The sensitivity is greatly increased by utilizing matched grating, pairs to
amplify the phase shift. The proposed research will pursue an increased theoretical
understanding of the technique's capabilities and preliminary experiments will be
performed. This research will help determine the utility of this technique, define the
limiting parameters of the approach, and design a prototype instrument.
Due to the high sensitivities expected from this technique, instruments based on
the proposed technology will be well suited for trace gas detection. Another application
of this technique is to utilize it for all-optical line locking of a laser to a molecular
resonance. This locking technique promises to be relatively simple and reliable, which
will be important for a variety of spectrally sensitive applications, including fiber optic
communications.